US-USSR Workshop on Magnetohydrodynamic Stability (Suzdal, USSR: August 25-31, 1991)

Problems of nonlinear magnetohydrodynamic stability are of considerable interest in the framework of geophysics as well as of fundamental importance in physics. It is anticipated that combining the complementary expertise of U.S. and Soviet scientists will lead to significant results related to better understanding of the fundamental mechanisms by which the Earth's magnetic field as well as planetary and solar magnetic fields behave and are generated. This U.S.-U.S.S.R. cooperative scientific workshop, organized by Dr. Susan Friedlander of the University of Illinois at Chicago and Dr. M. M. Vishik of the USSR Academy of Sciences' International Institute of Earthquake Prediction Theory and Mathematical Geophysics, will bring together distinguished scientists from the United States and the Soviet Union whose range of expertise covers applied mathematics, mathematical physics, astrophysics, and geophysics. It is expected that this initial meeting will generate further long-term collaborative activities in this field. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and the U.S.S.R. to combine comple- mentary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.